Modeling the CO2 Emissions Implication of Land-Use Change and Forest Management Alternatives

Abstract ATM-9711602 Marland, Gregg DOE - Oak Ridge Operations Title: Modeling the CO2 Emissions Implications of Land-Use Change and Forest Management Alternatives This proposal is aimed at further developing a mathematical carbon accounting model, GRAZ/Oak Ridge Carbon Accounting Modeling (GORCAM). Its primary focus is to better represent materials that are harvested from the landscape and to better parameterize the range of materials substitutions that can occur. The proposal attempts to trace the effect of a policy action to store CO2 a step or step beyond the site specific effects. This information is important and necessary for policy makers in assessing the impact of management practices on national and global carbon budgets.